History of the Mass Extinction Debates

9311216 Glen Dr. Glen is completing his decade-long study of the history of the current mass extinction debates. These debates were opened in 1980 by the advent of the Alvarez-Berkeley group hypothesis that the second greatest extinction in Earth's history which occurred 65 million years ago was caused by the impact of a meteorite. This hypothesis triggered a number of corollary and alternative ideas, including that of periodic mass extinctions which prompted the further surmise that meteoritic impacting was also periodic. Within months, periodicity was addressed by three alternative astronomical hypotheses that sought to regularly shower the earth with comets. Other hypotheses arose that speak to various aspects of the biosphere, atmosphere and lithosphere bearing on mass extinctions. By 1984, the explosive-volcanism hypothesis emerged to fuel the debates as the strongest alternative to the impact hypothesis. Over the past 13 years, the growing upheaval has spawned more than 2500 professional publications representing almost a dozen different disciplines and opened windows on multiple, interconnected theoretical conflicts in science. Closure has not been reached on any of the many debated issues. Dr. Glen's study is underpinned by a perhaps singularly comprehensive, stage-specific data base with a full range of primary historical materials including large oral and ethnographic components collected as the debates progressed. His study touches on how perceptions form and changge in science as arguments evolve, including the phenomenon of conversion to an opposing hypothesis; the role of theory choice in the assessment of evidence; the influence of disciplinary specialty in theory choice, and how theory choice and discipline influence the selection, use, and origin of standards of appraisal. ***